SBIR Phase I: A Fully Electric Space Vehicle Propulsion Engine

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is a fundamental change in the way spacecraft propulsion can be achieved, perhaps leading to orders of magnitude faster space travel. Recent physics breakthroughs suggest that the development of an electromagnetically powered engine could enable high-speed travel under the right conditions. Commercially, there is great potential to decrease transit time to destinations on earth, to low-earth orbit, to the moon, and to destinations further in our solar system. Success in developing this engine will initially be developed by improving satellite positioning and accessing orbits. Further scale up of this propulsion system could serve as a platform technology to enable increased access to space due to reduced need for chemical propellant and enhanced speeds.

This SBIR Phase I project develops and tests a prototype engine by verifying the creation of electromagnetically driven propulsion. By utilizing a complex dielectric material as the environment where electromagnetic energy is introduced, the proof-of-concept engine will verify that the weak and strong force conditions are not violated and that a positive energy density can initiate nanoscopic distortions, to demonstrate novel electromagnetic propulsion in the form of further scalable engines. A number of researchers have begun building upon the work of Albert Einstein’s general relativity theory and now Miguel Alcubierre’s metric that suggests that a vessel can be propelled by selective distortion. Two key goals are the development and implementation of the complex dielectric material, and the determinization of the radio frequency power required to achieve sufficient propulsion. The project approach will include: (a) mathematical modeling, (b) comprehensive simulations of different embodiments of the approach, (c) experimental verification of nanoscopic distortions using an established laser interferometry approach, and (d) design and testing of the prototype propulsion engine. Beyond the initial prototype, the next stages include an optimization of the power/distortion metrics, association of the distortion to thrust, and maximization of the thrust to weight ratio. Ultimately, this research is expected to lead to enhanced electric propulsion that will be applicable initially to satellites, but ultimately, to a wide range of on earth and off planet propulsion.